Calculation of Electron Impact Ionization Cross Sections

Three projects are planned that extend the theory of electron impact ionization developed by Briggs, Brauner and Klar; ionization plus excitation, extension of the BBK theory to lower energies using the distorted wave method and investigation of differential cross sections for heavier atoms with one or two valence electrons.